Embedded Minimal Surfaces in Three Manifolds

We propose various directions for studying embedded minimal surfaces
in three-manifolds. This includes the study of the convergence of such
surfaces, how they degenerate and whether or not their Morse index is
bounded. There are many possible applications of results along these lines
including to the spherical space-form problem, the topology of
three-manifolds with positive scalar curvature etc. In addition, these results should
yield new insight into minimal surfaces in Euclidean space.

This project focuses on minimal surfaces in three-dimensional
manifolds. Minimal surfaces are critical points for area (e.g.,
soap films are least area surfaces) and arise naturally in many
problems in mathematics and in the other sciences. Many of the
classical results in this area are on least area surfaces. In contrast,
our main interest is in high index (i.e., highly unstable) embedded minimal
surfaces with bounded topology - a well-known example is given by
the standard helicoid. Roughly speaking, the point of some of our theorems
is that the behavior of the helicoid is typical.